Laboratory Course in the Molecular Biology of Excitable Membranes

9352275 Lester A new laboratory course in cellular and molecular neuroscience has been established that is specifically tailored to undergraduate instruction, and uses the latest techniques and concepts in the molecular biology of excitable cells. The course emphasizes (1) the molecular biological and fine- structure function of the "excitability proteins" of neuronal and other membranes, (2) the nature of the intracellular signaling pathways that are activated by cell-surface receptors, and (3) the nature of the intracellular signaling pathways that are activated by cell-surface receptors. Most experiments take place in 2 sessions. In the first session, students begin with a cDNA clone encoding an ion channel or receptor. The students use PCR to generate an optimal DNA, suitable for in vitro cRNA synthesis, and carry out the cRNA synthesis reaction. The students inject the cRNA into Xenopus oocytes. In the second session, the students perform electrophysiological and pharmacological measurements on the injected oocytes. The initial sessions concentrate on relatively simple manipulations such as intracellular recording; then advance to 2-electrode voltage clamp and, finally, to patch-clamp experiments. Provisions are made for maximal utilization of the requested equipment in undergraduate research projects during the terms when the course is not offered formally. ***